Equipment Acquisition for Digital Control Laboratory

This project enhances the digital controls offerings at this institution. Using the laboratory funded by this award, undergraduate electrical engineering students study theoretical and practical principals of automatic controls, discrete time control systems and digital signal processing. The equipment supporting this lab includes: TMS32010 Evaluation Modules with analog interface boards, macro assembler/linker, simulators, Hiitachi V-1100A oscilloscopes, IBM PS/2 PC's and Epsom printers. This award is being matched by an equal sum from the grantee.